SCI: WORKSHOP: FOSBE 2005 Conference -- New Drivers for Shared CyberInfrastructure from Systems Biology; August 7-10, 2005; Santa Barbara, CA

This is a proposal for the support of FOSBE 2005 (Foundations of Systems Biology in Engineering) during August 7-10, 2005, at the University of California in Santa Barbara. The objectives of FOSBE 2005 are: to provide an in depth review and critical assessment of the current state of the art; discussing the current and future needs of research, education and training; and identifying new directions, opportunities, and challenges in system biology.

The award is being made to Cache Corporation, a non-profit organization, for only the direct cost (partial support for 12 academic plenary speakers, subsidy for 20 graduate students and postdoctoral associates, and costs of conference publication and administration).

A conference website exists with detailed information (http://www.fosbe.org). A brochure had been e-mailed using the combined AIChE-SBE, AIChE-CAST, and CACHE lists to approximately 1000 individuals and departments worldwide. In addition, hardcopies of the brochure had been widely distributed at national and international conferences and meetings. A final program and brochure will be distributed using the aforementioned lists in September.